III: Small: pCAR: Discovering and Leveraging Plausibly Causal (p-causal) Relationships to Understand Complex Dynamic Systems

Today, successfully tackling many urgent challenges in
socio-economically critical domains (such as sustainability, public
health, and biology) requires obtaining a deeper understanding of causal
relationships and interactions among a diverse spectrum of entities from
high-dimensional data. For example, the emergence and propagation of an
epidemic involves a causally complex interplay of entities, including
individuals and their social-interactions, physical short-range and
long-range networks of mobility, and intervention decisions (such as
school closures or restrictions on mobility) by decision makers. With
the aim of filling this important hole and enabling applications and
services with significant economic and public health impact, the project carries
out research on causally-aware data-driven science and engineering,
including data-supported causal analysis. The project also contributes
to workforce growth, provides an excellent context for doctoral,
master's, and undergraduate level research and teaching. Future
researchers that have the skills in both data analysis and management
are being trained and students are being introduced to career pathways
through their participation in research, publications, and partnerships
with domain experts.

In this project, the research team hypothesizes that data analysis provides
opportunities for identifying relationships that can potentially be
causal. They further hypothesize that data can be used for strengthening
and weakening causal assumptions, and for pruning relationships that are
certainly not causal. To validate and leverage these hypotheses, they
introduce the novel concepts of 'plausible causality' (p-causality) and
'plausibly causal (p-causal) relationships' and they develop
techniques to (i) discover p-causal interactions and relationships, (ii)
maintain these p-casual relationships in systems where causality itself
evolves over time, and (iii) use discovered p-causal relationships to
support efficient and effective data analytics to study complex, dynamic
systems. In particular, they develop new models to capture
context-sensitive plausibly causal (p-causal) relationships in complex,
dynamic systems and design novel and scalable causally-aware
data analysis algorithms that leverage known or hypothesized p-causal
relationships among entities within different and potentially evolving
contexts to deal with data sparsity, imprecision, and noise.